Genetics and Behavior of Mate Choice

ABSTRACT PI: Borgia PROPOSAL NUMBER: 9601560 Nonresoruce-based (NRB) mating systems are often associated with exaggerated male display traits. Studies of the evolution of these traits have taken a prominent place in behavioral and evolutionary biology. Little is known, however, about the genetics, dispersal and female searching behavior in NRB mating systems. Here we propose an integrated study of the genetics and behavior of the NRB mating system of the satin bowerbird (Ptilonorhychus violaceus). We will identify patterns of dispersal and factors affecting patterns of female visitation at bowers, test sexual selection models, measure heritability of male display traits and repeatabilities of female preferences for males, and evaluate the role of genetic relatedness in female choice, male learning of display elements and male interactions. We will use newly developed microsatellite genetic markers to score relatedness and will determine patterns of dispersal using blood samples from past and present members of a natural population of resolution satin bowerbirds one generation apart. New camcorders will allow high resolution monitoring of 40 bowers for accurate identification of banded females as they visit display courts and mate. By radio-tracking females and monitoring a primary food source, we will be able to determine if there is an effect of resources on female choice of nest sites and bowers that they visit. This study will provide the most comprehensive view of the process of mate selection in any avian species with an NRB mating system. We will test current models of mate selection and our findings will aid in the development of realistic new models for the evolution of exaggerated male display. This work should improve our general understanding of the genetics of mate choice